Bailing Out the Savings and Loan Industry: Corporate Welfare and the Welfare State

This study will examine the processes leading to the passage of legislation to bail out the savings and loan industry. The study will focus on three questions: What forces caused bank deregulation and its unintended consequences of the savings and loan crisis? What forces caused Congress and the executive federal government to contradict prevailing laissez-faire philosophy and agree to the most expensive bailout in United States history? What actors were most critical in shaping the deregulation and bailout legislation? The study will primarily be based on data extracted from the 34 volumes of testimony transcripts and supporting documents from the Congressional investigations into the crisis. The significance of the study is twofold. It will offer important insights into the events leading up to the savings and loan crisis and to the social problems it in turn created. This may be useful for policy makers and it may influence the debate on the future of the banking industry and in particular the savings and loan industry. The study will also contribute to our understanding of the role of the state in the shaping of corporate welfare, and thus possibly to an expansion of the concept of the welfare state to include not only social welfare but also the welfare of corporations and businesses.